NeTS:Small:Content Retrieval Networks: Network Access for Disadvantaged Regions

This award is funded under the American Recovery and Reinvestment Act of 2009
(Public Law 111-5).

Even in the US, many regions suffer poor Internet connectivity, due to
high prices, capacity limitations, poor infrastructure, or low
population density. Rural communities may be underserved because of
DSL distance limits and the high cost of bringing fiber optic cable to
low-density regions. Even when businesses or schools can be connected
by DSL, its capacity limits may still provide poor end-user experience
when many people share the connection. This research is addressing these
problems by using intelligent software to enhance network
connectivity. By aggressive data caching and off-peak prefetching,
data can be stored on disk and retrieved locally instead of always
being fetched from the Internet. For environments with many users,
this system can reduce bandwidth consumption by an order of magnitude,
providing higher effective end-user bandwidth, or allow cost
reductions by purchasing less wide-area bandwidth. The expected
outcome of this research is an open-source system that can be deployed
at Internet gateways, which will transparently improve network
performance. Possible locations include schools, small businesses, and
Internet Service Providers (ISPs). In schools, when a classroom full
of students accesses a topic, only one copy is downloaded, and
the rest get it from the cache. For news sites that update during the
day, only the changed portions get downloaded, instead of whole
articles. Prefetching will also reduce latency, by determining user
patterns and preloading content before it is needed.